An Undergraduate Environmental Monitoring Laboratory Data Acquisition System.

The objective of this project is to upgrade the environmental monitoring laboratories with the addition of computer controlled data acquisition and statistical analysis. This upgrade will result in laboratory experiences for the student which are more in agreement with current practice in industry and the regulatory agencies. Two laboratories will be upgraded-the Air Pollution Laboratory and the Water Chemistry Laboratory. Extensive instrumentation already exists, and the added computer equipment will facilitate the introduction of statistical analysis to the laboratory exercises and supplement a recently added course in mathematical statistics.